A Workshop Proposal: Geodynamic Evolution of the Transantarctic Mountains and West Antarctic Rift: A Linked System

9410839 Finn This award supports a workshop entitled Geodynamic Evolution of the Transantarctic Mountains and the West Antarctic Rift: A Linked System. The West Antarctic Rift system is a major continental rift adjacent to the East Antarctic craton and the Transantarctic Mountains are thought to represent an uplifted rift shoulder on the south side of the rift system. The rift system is of particular interest because of the marine-based West Antarctic Ice Sheet that occupies the region. The late Mesozoic and Cenozoic tectonic evolution of the rift and mountains have been the subject of several recent investigations sponsored by several national Antarctic programs. These investigations have demonstrated that these features are clearly linked and that their evolution has been complex. The proposed workshop will allow investigators to discuss approaches to future research to understand the dynamics of this rift system and the adjacent Transantarctic Mountains and to begin discussions about collaborative research to focus on this region. ***